A Study of the Particle Velocity Recordings, Site ConditionsAnd Radiation Effects for the SE Illinois Earthquake of June 10, 1987

The 5.1 m<b,Lg> southeastern Illinois earthquake of June 10, 1987 triggered 62 blast monitors in the coal mines and limestone and western Kentucky. The resulting set of particle velocity records is the largest sample of free-field ground motions of any earthquake in the central or eastern United States. Corrections for site and source effects in the ground motion traces are shown to reduce the variability in resulting data set. Site effects are based on shallow geotechnical investigations conducted to determine P- and S-wave velocities of the overburden as a function of depth, depth to bedrock, and bedrock topography. Source effects are based on the focal mechanism, focal depth, and type of faulting associated with the June 10th earthquake. The resulting site and source corrected free-field particle velocity records, used in conjunction with random vibration analysis and theoretical considerations, yeild an improved model for predicting seismically induced ground motions in the central United States that has appreciably less variability then existing models.